RIA: Magnetostrictive Actuator Development for Vibration Control in Structures

This research seeks to design, develop and implement a system of magnetostrictive actuators for sensing and control of structural vibrations. The system will employ adaptive control algorithms in local and global feedback configurations to minimize vibrations in various dynamic environments. Investigations to support the design and implementation will include frequency response studies, force nonlinearities, and hysteresis effects. The effort is motivated in part by the availability of magnetostrictive materials that can provide higher counter forces and strains as compared to piezoelectric materials. In that the results of this research will generate new knowledge concerning employment of magnetostrictive materials in vibration control applications, it should serve to advance the overall field of vibration control methodologies.***//